PECASE: Advanced Computational Electromagnetics Models of Photonic Microstructures and Innovative Approaches in Electromagnetics Education

9985004
Hagness

Photonic microstructures may enable the development of high-density
photonic integrated circuits with unprecedented optical information
processing capabilities. Their success critically depends upon the
availability of accurate and efficient modeling techniques to understand
and exploit the novel effects that emerge as the dimensions of optical
devices are reduced to the length-scale of the optical wavelength. The
primary objective of the proposed research plan is to develop advanced
first-principles simulation tools based on the finite-difference
time-domain method for modeling electromagnetic wave propagation in
photonic microstructures. These tools will be used to investigate
dispersive and nonlinear effects in photonic crystals and antiguiding
structures in vertical-cavity surface-emitting lasers. The computational
models will be experimentally validated through collaborative work at the
University of Wisconsin and at the Hewlett-Packard Laboratories. The
primary objective of the proposed educational plan is to enhance
electromagnetics education through the use of innovative teaching
approaches in two core undergraduate electromagnetics courses and the
development of a graduate-level course on methods in computational
electromagnetics. Web-based lectures will be developed and assessed for
student use outside the classroom so that more time in-class may be used
for potentially higher value-added experiential activities. Numerical
methods will be incorporated into both undergraduate and graduate-level
courses.
***